Symposium HH: Materials Science and Engineering Education in the New Millennium; San Francisco, CA; April 24-28, 2000

0073594
Pachavis

The Materials Research Society organizes a symposium titled "Materials Science and Engineering Education in the New Millennium" at its April 2000 meeting in San Francisco. The symposium focus is undergraduate materials science and engineering education, including both materials science and engineering degree programs and the role of materials courses and experiences in other undergraduate degree programs. There is also an international perspective to this symposium.

The symposium reaches an audience of education professionals beyond the Materials Research Society's membership, and especially seeks to bring in faculty from community colleges, undergraduate institutions and engineering technology programs.